The Evolution of Globular-Cluster Systems Formed in Galactic Mergers

AST 0205994
Schweizer

The formation and evolution of galaxies is of central interest in present-day astrophysics. There
is mounting evidence that many galaxies grew from smaller units, and that galactic mergers may
have played a major role in determining the shapes and dynamics of certain remnants, and perhaps
even of elliptical galaxies. However, the details of this assembly remain unclear, and there are
several competing hypotheses for the formation of ellipticals. Fortunately, a few galactic mergers
still occur in the local universe and o.er valuable clues to the past assembly process.
The 1992 discovery that globular star clusters form in large numbers during mergers of gas-rich
galaxies has opened new avenues to studying the formation and evolution of globular clusters and
of their host galaxies. Questions of current interest are: Is there an evolutionary link between
globular clusters formed in mergers and old globular clusters in giant elliptical galaxies? How
do systems of globular clusters formed in mergers evolve? Specifically, how do their luminosity
functions, metallicity distributions, and kinematics evolve? Do galactic mergers imprint cluster
systems with kinematic signatures (e.g., fast outer rotation) that can be traced along a sequence
of merger remnants of increasing age?
The Principal Investigator, Francois Schweizer, proposes carefully designed observational studies
to address these questions. He points out that-whereas the birth of young clusters in ongoing
mergers and the properties of old globular clusters in ellipticals have been studied widely in recent
years-there is a surprising lack of knowledge about globular-cluster systems of intermediate age.
Yet, these systems hold great promise for directly addressing the above issues.
Dr. Schweizer and collaborators were among the .rst to study globular clusters formed in mergers
with the Hubble Space Telescope and to follow up with ground-based spectroscopic observations
to determine their ages and chemical abundances. He will now search for globular clusters of intermediate
age (1 - 7 Gyr) in about a dozen galaxies thought to be transition objects between ongoing
mergers (e.g., NGC 4038/39) and old ellipticals. He will use both the Baade 6.5-m telescope at
Las Campanas Observatory and the Advanced Survey Camera on the Hubble Space Telescope to
obtain some of the deepest images ever taken of these transition objects and their globular-cluster
systems. Photometric analysis of these images, as well as of Hubble archival images, will yield the
chronology of these cluster systems from their broad-band colors.
The same deep images will also be used to study the evolution of the globular-cluster luminosity
function with time. The luminosity functions of fresh-born cluster systems are power laws,
while those of ancient systems are close to lognormal. Theory predicts that as globular-cluster
systems age, their luminosity functions should evolve from the .rst to the second shape through
preferential erosion of low-mass clusters. Deep luminosity functions reaching past the predicted
turnover magnitudes will be measured from the images to subject this prediction to a critical test.
A parallel program of multi-slit spectroscopy mainly with the Magellan 6.5-m telescopes, but
also with the northern Gemini 8-m telescope, will yield metallicities and more accurate ages for some
key globular-cluster systems of intermediate age. Measurements of radial velocities for typically
40 - 200 clusters per galaxy will permit comparative studies of the kinematics of metal-poor and
metal-rich globulars within the same galaxy. This will yield valuable clues about the origins of
what are thought to be .rst- and 2nd-generation cluster subpopulations.
These observational studies will test all proposed formation mechanisms for ellipticals and
will-specifically-focus on possible evidence for an evolutionary link between 2nd-generation globulars
formed in mergers and metal-rich globulars in old ellipticals. The results from this project
will help improve our understanding not only of globular-cluster formation and evolution, but also
of galaxy formation and growth and, ultimately, of the origin of Hubble's morphological sequence
of galaxy types.
***